Introduction of Fourier Transform-Infrared Spectroscopy (FT-IR) into the Chemistry Curriculum and Integration with Computer-Controlled Gas Chromatography

The introduction of Fourier Transform Infrared Spectroscopy, integrated with computer-controlled Gas Chromatography,into the undergraduate chemistry curriculum at the University of Southern Colorado has provided a major tool for introducing students to the use of computer integrated instrumentation, database searching and computer assisted data manipulation. The combination of GC with FTIR allows students hands-on experience with a system dealing with real world complex microanalysis problems as practiced in industry and research. Diffuse reflectance and cylindrical internal reflectance accessories allow students to explore most modern sampling techniques. Course directly impacted include Organic Chemistry, Physical Chemistry, Instrumental Analysis, Advanced Organic Chemistry and Independent Study. Both majors and non-majors are exposed to this instrumentation.